Waveform Tomography from an Executed Big Footprint Experiment: The Chi-Chi (Taiwan) Earthquake

EAR-0001016
Teng, Ta-liang

This project will carry out a 3D crustal structure study making use of the excellent data set recovered from the 1999 Chi-Chi (Taiwan) mainshock and several of its large aftershocks, plus three year worth of seismic background strong-motion recordings of several hundreds smaller (M ~4 - 5) events. These events are recorded by (1) a complement of 700 freefield digital strong-motion stations, (2) 75 3-componeent short-period network stations and (3) 12 broadband stations. The investigators will use the above data set to study a large sedimentation basin in southwestern Taiwan, with the objective to deduce a 3D crustal structure of resolution up to 3 s period. The upper crustal structure will be determined by a standard array processing technique using 1D surface-wave phase velocity inversion analysis for the period range 3 - 15 s. Lower crustal structure can be determined by dispersion data of long-period (10 s - 100 s) surface waves recorded at an array of broadband stations. A group of adjacent 1D crustal models will be pieced together to obtain a 3D crustal structure.